Biodiversity and Ecosystem Informatics - BDEI -Quantifying Forest Ground Flora Biomass and Diversity Using Close-Range Remote Sensing

EIA-0131801
Doruska, Paul
University of Arkansas

BDEI: Quantifying Forest Ground Flora Biomass and Diversity Using Close-Range Remote Sensing.

Summary

Researchers propose the use of close-range remote sensing to estimate biomass per
unit area and species diversity of forest ground flora. Ground flora biomass and diversity
information is useful when describing forested ecosystems, gauging results in scientific
experiments and determining the need for herbicide application to reduce unwanted
competition in forest crops. Scientists will use both color and color infrared digital
imagery to study forest ground flora biomass and species diversity of pine stands in
southeastern Arkansas and mixed pine-hardwood stands in the Ouachita Mountains in
central Arkansas.

Airborne and/or space-borne imagery have been used to estimate forest overstory
biomass. However, such platforms cannot be used to estimate biomass of forest ground
flora species because (a.) spatial resolution is too coarse for the required level of detail,
and (b.) the presence of the overstory canopy can hinder use of such imagery. The
objectives of this project are to (1) determine if these metrics can be collected through
close-range remote sensing, and (2) identify spectral signatures for a number of species
of forest ground flora.